Expectations, the Macro Economy, and Asset Markets

This research consists of continuing work in three different areas: survey research which attempts to assess possible impediments affecting the ability of the remnants of the Soviet Union and Eastern Europe to adjust to the market; the behavior of real estate prices and returns; and studies of the correlations between asset prices and their relation to underlying economic fundamentals. Research regarding the heretofore communist economies will involve developing questionnaires and surveys concerning the expectations of future government interference in the economy and the impact that such expectations may have on inhibiting entrepreneurial activity. Indigenous entrepreneurial behavior will be critical in determining the success of the transition to a market economy, and this work will represent an important first step in understanding the determinants of entrepreneurial behavior and the prospects of a successful transition. The second area of work will test for efficiency in the operation of real estate markets and the forecastability of real estate prices and returns using methods that are guided by theory derived from structural models of the real estate market. This work is at the border of structural modeling and the kind of modeling suggested by empirical finance. The third area of work is directly in the finance area and will involve extending previous work on the time series properties of long term interest rates in comparison with those of stock prices and dividends. The work involves relating correlations among different asset prices and correlations among market fundamentals that underlie such prices. Specifically, the implications of the information pooling model will be tested to see if its explanation of asset price co-movements is actually consistent with the data. These two areas of research are important because they will shed light on the operation of two markets critical to the performance of the U.S. economy, the capital market and the real estate market.